Creating a National Initiative to Refocus the Courses Below Calculus

Mathematical Sciences (21) This special project is laying the groundwork for a collaborative effort of the Mathematical Association of America (MAA), the American Mathematics Association of Two Year Colleges (AMATYC), and the National Council of Teachers of Mathematics (NCTM) to lead the mathematical sciences community in reconceptualizing and restructuring courses before calculus, so that the needs of students in those courses may be better served. Thirty leading mathematics educators representing these three major professional societies, as well as eight MAA committees, are jointly identifying the challenges that must be overcome and the strategies to do so. These include influencing the mathematics community, developing faculty training efforts, enlisting the support of other disciplines and business, industry, and government for the effort, and influencing state agencies that dictate general education requirements.